Mathematical Sciences: Mathematical Sciencecs Computing Research Environments

The Center for Computational Statistics at George Mason University will purchase a Silicon Graphics 4D/420/VGX graphics workstation which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including, in particular,1) nonparametric function (structural) estimation using k- skeletons, 2) graphics for binned 2-D, 3-D and 4-D data, 3) adaptive probability density estimation in low to moderate dimensions using random tessellations, and 4) virtual reality for exploratory data analysis. Visualization of statistical and geometric structure forms a key element in these research projects.